Representations and cohomology of algebras and categories

The main focus of the present proposal is the study of representations
and cohomology of EI-categories - that is, categories all of whose
endomorphisms are isomorphisms. The motivations for this proposal have
their roots in long standing conjectures in modular representation theory as
well as open problems in the homotopy theory of p-local groups, a certain
type of p-complete topological spaces whose homotopy theory has been
developed in work by Broto, Levi and Oliver.

The principal investigator has recently shown that one of the most
well-known conjectures in modular representation theory, Alperin's weight
conjecture, (which is originally a numerical equality involving the number of
simple modules of a p-block of a finite group), has a structural
reformulation in terms of the cohomology of a certain functor on a suitable
EI-category.

One of the directions the principal investigator proposes to explore is
that there should be similar structural results - exploiting work of
G. R. Robinson - regarding Dade's conjectures (which are, very roughly,
refinements of Alperin's weight conjecture taking into account more
subtle invariants of characters). The problem is to find the ``right"
EI-category.

Two important open problems in block theory can be formulated in a
completely general way as ``gluing problems" of 2-cocycles of certain functors on
appropriate categories: the question whether one can associate a
classifying space with each p-block and the question whether the K"ulshammer-Puig
2-cocycles on automorphism groups of centric subgroups of a block are
the restrictions of a 2-cocycle defined on the fusion system of the
block.
Another recent result of the principal investigator is that there is
a spectral sequence relating the cohomology of a functor
on a regular EI-category to the cohomology of functors on the poset of
isomorphism classes of objects of that category.
This spectral sequence should be useful for addressing
the two mentioned gluing problems; this
is another direction the principal investigator proposes to take.

One way to look at a - not even necessarily mathematical - object is to
consider all maps of that object to itself which preserve its
structure (the group of its "symmetries") and deduce from those
maps properties of the considered object -
this is, in a very simplified way, the general principle of
representation
theory.